Expansion of Undergraduate Biological Research Opportunities Through Acquisition of Laboratory Technology

This project expands the demonstrative capacity of biology laboratories and increases opportunities for hands-on and research at the undergraduate level. It enhances students' opportunities for advancement in their chosen degree programs. The grant provides three Ward Model 16 LEAP computerized biology lab systems, one Ward spectrophotometer and supplies, three 386/486 computers to run the equipment, and one laser printer. The equipment is being integrated into biology labs at all levels. The project better prepares biology students to bridge to 4-year biology programs successfully by providing them with better technological training and a firmer hands-on grasp of basic biological concepts.